Bubble, Drop and Particle Motions in Viscous and Voscoelastic Fluids

Theoretical and experimental research is to be conducted on the behavior of drops, particles, and bubbles deformed and transported by the motion of an embedding viscous fluid. The theoretical modeling effort is largely numerical and includes the case of strong droplet or bubble deformation. The Reynolds numbers of interest are such that inertial effects vary from weak to moderately strong. Both viscous and viscoelastic fluids are to be considered. Specific topics to be considered are drop formation and breakup, coalescence and particle capture at a fluid interface, and motion and deformation of drops and bubbles through an otherwise quiescent fluid.